Oceanographic Instrumentation

9820675
Willis
This award to Oregon State University will provide instrumentation for oceanographic research for use on R/V Wecoma, a research vessel operated by the university as part of the University-National Oceanographic Laboratory System research fleet. Specific instrumentation to be acquired includes water sampling bottles, CTD computers, nutrient/oxygen titration equipment, an acoustic ranging deck unit, temperature/humidity sensors, and replacement of coring equipment lost and damaged at sea. The coring equipment is used on a variety of UNOLS research vessels throught the NORCOR coring facility at OSU. The shared-use instrumentation supported here will assist marine scientists conduct studies, particularly in the Northeast Pacific Ocean, during 1999 and future years.
***